RAPID: 3-D Model Forecast of the Vertical and Horizontal Distributions of the Oil Plumes Arising From the DeepWater Horizon Spill

Intellectual merit: Since the explosion of the Deep Water Horizon Oil Drilling Rig on April 20, 2010, a large amount of oil has spilled in the Gulf of Mexico (GOM), posing unprecedented threat to the gulf coasts, as well as the southeast coast of United States. While satellite remote sensing, aircraft flights, and surfaces drifters are providing valuable information on the oil surface trajectories since the accident, little is known about how the spill is distributed below the surface. In this project, the investigator hereby will implement an advection, diffusion and reaction tracer model for Emulsified Oil created by the use of dispersants and couple it within our exiting South Atlantic Bight and Gulf of Mexico (SABGOM) circulation nowcast/forecast system to track the vertical and horizontal distribution of the oil plumes. This coupled oil-circulation model will be run throughout the entire hurricane season (June 1 – November 30) to provide 24/7 prediction of three-dimensional oil trajectory in the GOM and southeast Atlantic coastal ocean.

Specific questions to be addressed in this project include:
1) How is the spill distributed at depths, and to what extent they have been transported by the
Sub-surface currents?
2) How does the strong mixing associated with tropical storms traversing the Gulf of Mexico and the South Atlantic Bight bring subsurface oil up to the surface?
3) How do the storm surges transport the newly surfaced oil up on the beach?

Given there is still no consensus on the total amount of oil spilled from the wellhead, the investigator will also perform model sensitivity experiments with various amount estimates of oil spill. Existing satellite and aircraft observations will be used to validate the simulated oil spill surface features, including expansion directions and total areas.

Broader Impacts: The resulting three-dimensional oil tracer fields (from different oil spill amount scenarios) will be used to calculate the oil residence time at different depths of the ocean, thereby offering critical information for continued restoration effort. As a part of deliverable of this project, the predictions of circulation and three-dimensional oil trajectories will be made available through a public website. Research findings will be published in peer reviewed journals.